Scholars in Mathematics at Spelman

The academic development of tomorrow's mathematicians require a vision of the future and a program to achieve that vision. Spelman College has that vision. The project "Scholars in Mathematics at Spelman (SIMS) will provide a comprehensive research and academic enrichment program for talented minority women students. The overall objective of the program is to develop an academic environment that assures the preparedness of minority women as they pursue degrees in mathematics at the best graduate schools throughout the country. The students selected to participate in the program will be mathematics majors that have demonstrated potential for earning a graduate degree in pure or applied mathematics. Each student's academic program at Spelman will include enrichment activities such as participation in a research issues course, supervised mathematics research, seminar participation, and conference attendance. During the first year, four students will be selected for the program: two sophomores and two juniors. Subsequently, two rising sophomores will be selected immediately following the spring semester each year of the grant. Each student will engage in at least two years of research experience with faculty advisors culminating in a written thesis. Two summer research experiences will include at least one internship at an off-campus research facility or university.